Acquisition of Global Geophysics Compute Server

9614483 Ritzwoller This grant provides $34,500 as partial support of the costs of acquiring a new multi-CPU server and peripherals for the Geophysics group at the University of Colorado. Specifically, the equipment which will be purchased includes a dual CPU Sun Ultra SPARC Enterprise 3000 server with a 256 Mb memory expansion and 27 Gb of mass storage to be used for computationally intensive geophysical modeling and data analysis including inversions of large seismic data sets, modeling of the anelastic and elastic properties of the Earth's crust, lithosphere and mantle, modeling of the geomagnetic field and mantle dynamics and calculation of the effects of tides, earthquakes and isostatic adjustments on the geoid. Funding of this grant is provided through both the Earth Science's Instrumentation and Facilities Program ($22,000) and the Office of Polar Program's Geology and Geophysics Program. ***